Digital Government: dg.o Workshop and Publicity

EIA-0089522
Hovy, Eduard
University of Southern California

Digital Government: dg.o Workshop and Publicity

This grant will support a series of three annual workshops for the grantees of the Digital Government Program, their Federal government research partners, and other interested parties (local, tribal, state government representatives, the press, industry). The purpose of the workshops are for grantees to share their most current research findings, for agencies to contribute their problems and mission interests, and to begin to form a community for those interested in information technology research and development related to government information services.